NSF Postdoctoral Fellowship in Biology FY 2021: The social brain: behavioral, neural, and transcriptomic modulation of the brain

This action funds an NSF Postdoctoral Research Fellowship in Biology for FY 2021, Integrative Research Investigating the Rules of Life Governing Interactions Between Genomes, Environment and Phenotypes. The fellowship supports research and training of the Fellow that will contribute to the area of Rules of Life in innovative ways. Animals interact with their world through cognitive mechanisms, the substrates of which are found in the neural tissues of the central nervous system. A fundamental mechanism of cognition is associative learning where an individual associates a stimulus with a specific experience. Animals form many associations about events in their world, including negative events such as the avoidance of predators or extreme conditions and positive events such as the location of food or mates. Depending on how an individual reacts to stress, positive and negative learning contexts likely affect individuals in different ways. Using zebrafish as a model, this research aims to understand how fish with differing stress reactivity react to different learning contexts, and how this differentially affects their brain. The project will create public outreach opportunities to diverse audiences in association with this work.

This research will utilize cutting edge behavioral analysis and neuromolecular techniques to probe the behavioral, neural, and transcriptomic outcomes of different learning contexts. Using zebrafish from lines selected for high (reactive) and low (proactive) stress reactivity, the Fellow will train fish in a conditioned place preference paradigm using appetitive or aversive stimuli. Following the experiment, neural activation will be evaluated using the immediate early gene egr-1 and expression of the plasticity-related gene npas4a across a network of brain regions involved in learning and memory. The Fellow will then evaluate the neural transcriptome in the hippocampus and basolateral amygdala. The Fellow will compare learning and memory, neural activation, and gene expression between learning contexts (appetitive or aversive) and stress coping styles (reactive or proactive) to determine how intrinsic and extrinsic factors interact in individual fish to affect cognition at the behavioral, neural, and transcriptomic level. This fellowship will provide opportunities for the Fellow to develop research, teaching, and public engagement skills that will prepare them to begin an independent career at a research-intensive institution. The Fellow will engage diverse communities with STEM through public outreach and cultivate valuable research opportunities for students from local community colleges.